Collaborative Research: Towards an Authentic Simulated Student Agent

New educational technology, such as automated chatbots powered by artificial intelligence (AI), are rapidly being developed to support teaching and learning. However, rigorously evaluating new educational technology directly with real students can be slow and costly. In this project, the research team addresses this challenge by developing simulated student agents: AI-based systems designed to model how students think, learn, and respond during educational activities. Focusing on middle-school mathematics, the project seeks to create student simulators that can help teachers, tutors, curriculum designers, and researchers test instructional approaches more rapidly and understand how different students may respond to new educational experiences. The technical approach taken in this project revamps existing student modeling approaches, which can only simulate passive, question-answering behavior, and builds fully interactive student models capable of interacting with teachers in dialogues and exhibiting different engagement patterns. As a result, this project can lead to better teacher preparation and more effective learning content, which may, in turn, benefit students and build towards a stronger future national science, technology, engineering, and math (STEM) workforce.

This project investigates how large language models (LLMs) can be turned into authentic simulated student agents capable of representing student knowledge and behavior. The research addresses three questions: how to reproduce realistic student errors; how student understanding and engagement can be inferred and summarized from open-ended learning activities, such as tutoring dialogues and peer discussions; and how simulated students can be used to evaluate and improve educational interventions. First, the research team will connect student knowledge models with how they reason in math questions and arrive at different answers, especially when they make errors. Second, the team will build interpretable student models that generate textual descriptions of student knowledge and engagement, which will be used to simulate how they respond to tutors in tutoring dialogues. Finally, the team will use reinforcement learning to train LLMs as effective tutors by interacting with simulated students and maximizing their learning outcomes. The project will include co-design sessions and experimental studies with educational stakeholders, including pre-service teachers, and will assess the effectiveness of simulated students for supporting instructional decision making. Expected outcomes include new algorithms for student simulation and modeling, concrete evidence regarding their effectiveness in teacher training, and optionally, publicly available benchmarks and tools that support future research on optimizing the pedagogical capabilities of AI.

This project is funded by the Research on Innovative Technologies for Enhanced Learning (RITEL) program that supports early-stage exploratory research in emerging technologies for teaching and learning.